Particle Theory

Theoretical research in elementary particle theory will focus on string theory, solvable quantum field theories, and quantum groups. String theory is the only known consistent framework for the unified description of all elementary particles and forces, so further progress in this theory is quite important. The work on solvable field theories and quantum groups can improve our understanding of the mathematical structures that describe the elementary particles.